Multi-University Integration of Solid-State Chemistry and Powder X-ray Diffraction into the Undergraduate Curriculum

The Chemistry Division of the Associated Colleges of the Chicago Area (a consortium of 15 small liberal arts colleges), spearheaded by the Chemistry Department at Aurora University, is introducing Powder X-Ray Diffraction (PXDR) instrumentation to undergraduate chemistry students and to K-12 pre-service and in-service teachers. The four goals the project is achieving are: (1) Delivering a two-week, 60-contact hour, 4 credit, research-oriented, solid-state/materials course, through workshops, to the large, broad and diverse undergraduate population served by the consortium, with the course being offered at three distinct times. (2) Delivering summertime research-oriented workshops for pre-service and in-service K-12 teachers that focus on complex instrumentation as applied to synthesis of inorganic materials with potential applications in catalysis, waste remediation, alternative energy, or photonics. (3) Integrating solid-state and materials chemistry coupled with the PXRD instrument across all levels of the undergraduate curriculum at the lead institution. (4) Enhancing research training of upper-division students through undergraduate research experiences built around easy access to a PXRD instrument.

The project is establishing the efficacy of a workshop-style, highly-focused, and time-condensed course in providing significant, research-driven laboratory experiences to students at a time when this is their only intellectual commitment. The project also aims to motivate students to become enthusiastic about chemistry in general, and solid-state chemistry in specific. A long term goal is to increase the number of students who enter graduate programs in solid-state chemistry or who are tapped as highly qualified candidates for the materials industry. The use of the instrument in the support of faculty-mentored research is leading to new experimental findings as well as in the training of next-generation graduate students.

The variety of students eligible for the condensed-format course, from the consortium schools, is ensuring a diverse audience. The coupling of the project to the needs of pre-service and in-service teachers is uniquely presenting hands-on access to sophisticated instrumentation in a deliberate attempt to engender enthusiasm and excitement about the research-based nature of chemistry. The project's courses, workshops, and approach, built around a modestly priced, widely useful instrument can serve as a model for adoptions and adaptations by many other institutions.